Combining and rehousing the Louisiana State University Herbaria

This project will combine and rehouse the collections of the Louisiana State University Herbaria. New cabinets will be used to replace inadequate ones, to relieve overcrowding, and to provide for future expansion. Collections of the LSU Herbaria consist of bryophytes, fungi, lichens, and vascular plants. The vascular plant collection at LSU is one of the oldest in the Gulf South. Among its holdings are important historical collections, numerous types, and an excellent taxonomic and geographic representation of plants from this region and of the New World. The institution has provided new space for the herbarium, and these funds will be used to provide additional cabinets and a compactor storage system for greater efficiency and improvement of access for outside researchers.